Collaborative Research: RUI: Magmatic Evolution of the Mid-Continent Rift System: Constraints From the Layered and Felsic Series of the Duluth Complex

9903003
Wirth
The aim of this project is to constrain the magmatic and chemical
evolution of the Midcontinent Rift System (MRS). We will accomplish this
with an integrated major- and trace-element, Sm-Nd and Lu-Hf isotopic, and
U-Pb geochronological examination of two important components of the Duluth
and Beaver Bay intrusive complexes of the MRS in northeast Minnesota: (1)
layered mafic intrusions; and (2) large granophyric (hypabyssal granitic)
bodies that have been intruded into the upper levels of the complexes.
This portion of the MRS rift is critical for detailed study because (1)
much of the entire upper crustal section, including complete volcanic
sequences and shallow magma chambers, is exposed which will allow us to
examine the genetic relationships between the intrusive and extrusive
units; and (2) this region contains numerous felsic units that are
volumetrically important in both the volcanic sequences and in the
intrusive complexes. The genesis and timing of these felsic units is still
not completely understood and will be a major focus of this proposal.
Constraints on the petrogenesis, evolution, and ages of the layered mafic
and granophyric intrusions will help refine an integrated model for the
evolution of the Midcontinent Rift System.